International Conference on Tropical Micro-Meteorology and Air Pollution, February 15-19, 1988, New Delhi, India, GroupTravel Award in Indian Currency

Description: This project supports participation by ten U.S. scientists and up to five scientists from developing countries to participate in an "International Conference on Tropical Micro-Meteorology and Air Pollution, to be held in New Delhi, India, February 15-19, 1988. The conference will include scientists from several European countries, Australia and Japan. Topics to be covered will include modelling and monitoring of pollution from combinations of small, dispersed and large industrial sources, impact of future growth in the use of alternative energy sources, and improved efficiency of combustion on air pollution in the tropics, characterization of tropical boundary layer over land and ocean, and procedures for dealing with accidental releases of substantial quantities of toxic material in densly populated areas. The proceedings will be published by the International Journal of Atmospheric Environment (published in the U.K. and printed in India). Scope: The conference is sponsored by the American Meteorological Society, the Third World Academy of Sciences, Trieste, Italy, the Indian Department of Science and Technology, the Indian Science Academy, and the Indian Meteorological Society. The U.S. P.I. is a leading researcher on Indian atmospheric dynamics in collaboration with the Indian organizer of the conference. It is likely that the meeting will stimulate further collaborative research, as well as provide guidelines on dealing with atmospheric pollutants.